Facilitation Award for Scientists & Engineers with Disabilities

This action funds a facilitation award for an NSF Minority Postdoctoral Fellow who has a physical disability thus requiring the assistance of a technician. The research and training plan supported under the fellowship will use the nematode C. elegans to identify mutations that suppress the induction of late onset neurodegeneration by cell death. This work requires rearing the organism and manipulating it in ways that are beyond Mr. Royal's ability. The technician will perform the laboratory work for the experiments designed and interpreted by Mr. Royal, working in concert with the sponsoring scientist.